Quantum Fluids and Solids

Low Temperature studies of collective behavior of liquid and solid 3He, mixtures of 3He in 4He, and 4He films are proposed. The work will be conducted in a variety of experimental environments including temperatures well below 1 mK, magnetic fields greater than 7 T, and even liquid under rotation. The general purpose of the work is to gain a deeper understanding of the nature of phase transitions and collective quantum mechanics behavior in matter.